Discrete Relaxation Architectures

The development of advanced computer architectures for Discrete Relaxation Algorithm (DRA), a general computational technique for enforcing consistency in a consistent labeling problem, is being carried out. This research focuses on developing an optimal parallel algorithm and architecture for DRA and embedding the DRA in backtracking. Implementations of the optimal algorithms on a fine-grained, massively parallel computer architecture in VLSI (very large scale integrated) is being carried out. Various heuristic strategies for speeding up tree searches are being developed.